2016 AMS Mario J. Molina Symposium; New Orleans, Louisiana; January 10-14, 2016

This project supports a named symposium to honor Dr. Mario J. Molina to be held as part of the 96th American Meteorological Society (AMS) Annual Meeting in New Orleans, Louisiana on 10-14 January 2016. Dr. Molina has made fundamental advances to atmospheric chemistry both in the troposphere and stratosphere. His research was instrumental to the negotiation and the establishment of the Montreal Protocol to protect the ozone layer by prohibiting the release of anthropogenic gases that destroy stratospheric ozone. Dr. Molina was awarded the 1995 Nobel Prize in Chemistry for his pioneering research in understanding the stratospheric ozone loss mechanism.

Dr. Molina's pioneering research on the impacts of chlorofluorocarbons (CFCs) on stratospheric ozone demonstrated the vulnerability of the natural environment and promoted the public awareness of the potential harmful consequences of anthropogenic activities. This project supports 5-10 early career scientists (i.e., undergraduate students, graduate students, post docs, and un-tenured professors) and one invited keynote speaker (i.e., Dr. M.J. Molina) to attend the symposium.

The 2016 AMS Mario J. Molina Symposium will provide broader impacts by hosting training opportunities for young scientists in the atmospheric chemistry, climate, and policies. Graduate and undergraduate students are encouraged to participate and present their research in this symposium. Best student oral presentations and poster papers will be selected at the meeting and recognized by the AMS Atmospheric Chemistry Committee. The International Commission on Atmospheric Chemistry and Global Pollution (ICACGP) is a co-sponsor of this symposium.